Tropospheric Chemistry of Isoprene and Monoterpenes

On regional and global scales, the emissions of non-methane organic compounds from vegetation, mainly comprised of isoprene and monoterpenes, are comparable to or exceed the emissions of non-methane organic compounds from anthropogenic sources. During this three-year experimental program, the PIs will identify and quantify, using atmospheric pressure ionization tandem mass spectrometry in conjunction with Fourier transform infrared absorption spectroscopy, gas chromatography and combined gas chromatography-mass spectrometry, the products formed under tropospheric conditions from the gas-phase reactions of isoprene and a series of monoterpenes with OH and NO3 radicals and O3. The product and mechanistic data obtained from this research program will provide the information necessary for the formulation of reaction schemes for the tropospheric degradations of these compounds of biogenic origin. Certain of the product species formed may serve as "marker" compounds for the atmospheric transformations of organic compounds emitted by vegetation. Accordingly, the PIs will also conduct selected ambient air studies in carefully chosen locations to investigate whether or not these atmospheric transformation products are present in the ambient atmosphere.